Alaskan Native Marine Science Enhancement Program

This project is designed to introduce Alaskan Native undergraduate students to scientific study through marine internships. The rationale is that the coastal Native populations of Alaska have a deep involvement with the marine environment, and especially with its biological resources. Marine science is therefore likely to be more attractive to them initially than other areas of science. Students in their sophomore, or possibly freshman, year at selected coastal institutions, as well as the University of Alaska Fairbanks campuses, will be offered the opportunity to participate in marine science internships. Working closely with a faculty mentor, each student will learn about research through hands-on experience as well as individual tutoring. Students at coastal sites will be encouraged to move to a senior campus to pursue baccalaureate degrees in scientific areas, and those that chose to do so would receive continued support and mentoring to encourage their success. Approximately five student fellowships are to be offered each year of this three year project.